Workshop for Planning and Assessment on Incineration of Municipal, Hazardous, and Biomedical Wastes, San Diego, California, August 9-10, 1988

This workshop is to answer the two most critical questions raised in the original April 18-19 workshop on incineration, i.e., the apparent lack of success in measuring the criteria pollutants with existing continuous monitoring techniques, as well as the inadequacy of current commercial NOx removal systems. Once the current monitoring failures in the field are analyzed by a group of specialists and industrial users, the diagnostics experts will bring in their experience from other applications and will identify the basic research needs of incineration diagnostics. Furthermore, a low rate of performance has been identified in the various techniques of elimination of nitric oxides. A critical review of such equipment is timely, in particular from the viewpoint of the weaknesses and needs of the current data base in designing effective equipment. The resolution of these two major areas of concern will help the waste incineration industry enter a predicted phase of rapid growth with the proper knowledge base for the design of safe and efficient equipment.